The Drake Passage Expendable Bathythermograph

9726003
Peterson

This project is a study of the seasonal variability and long term change of the upper ocean structure of the Drake Passage. It consists of high density sections obtained on each crossing by the U.S. Antarctic Program's research vessel Laurence M. Gould, using expendable bathythermographs, supplemented by expendable conductivity-temperature-depth probes.

This information will lead to the establishment of a high quality data base with which to study the magnitude and depth of penetration of the seasonal signals, connections to atmospheric forcing, and the effects of interannual variations such as those associated with the Antarctic Circumpolar Wave.

Six sections were obtained from the R/V Polar Duke between September 1996 and April 1997. The probes are being supplied by the institution with other funds, and are launched by the scientific shipboard personnel on each cruise. The continuing data analysis is carried out in cooperation with the Argentine Antarctic Institute in Buenos Aires.
***